ROW/Career Advancement Award: Eigenstates of a Schematic Shell Model: Statistics and Scars (Physics)

This work will study the eigenvectors of a schematic shell model whose classical limit displays both regular and chaotic motion. The statistics of matrix elements will be examined for universal features expected from random matrix theory and for specific features corresponding to short periodic orbits.